Co-editor of "NSF Highlights" Column in The Journal of Chemical Education

This project supports the work of the PI as co-editor for the "NSF Highlights" column which appears monthly in the Journal of Chemical Education. The column serves to disseminate the results of projects funded in chemistry by the Division of Undergraduate Education, thereby also improving the understanding of the purposes of DUE's programs, and encouraging proposals to improve the quality of undergraduate education in science, mathematics, engineering and technology for all students.